CISE Research Instrumentation: Instruments for Systems, Software, and Database Research

9818323
Maletic, Jonathan I.
Dasgupta, Dipankar
University of Memphis

Instruments for Systems, Software, and Database Research

This research instrumentation enables research projects in:
- Geometric Techniques for Data Mining,
- Immunity-Based Intrusion Detection,
- Adaptive Indexing, and
- Software Reuse and Understanding.

To support the aforementioned projects, this award contributes in building an instrumentation infrastructure, a laboratory dedicated to specific research in systems, software, and database, at the University of Memphis, Department of Mathematical Sciences. The funds will contribute to the purchase of a Sun Enterprise 250, some Sun Ultra 5's, and the supporting networking software facilities. The computational techniques in the first project will be used to handle data mining problems in time series, where the data is not geometric in nature, but solutions involve geometric structures and algorithms and in spatial data mining, where the data itself is geometric in nature. Specific problems include similarity measure and searching in time series, and proximity and clustering problems in spatial data mining. The second project focuses on investigating immunological principles in designing a multi-agent system for network intrusion detection. The immune agents roam around the nodes of the network and monitor the situation, mutually recognize each other's activities, and produce specific action, while learning and adapting to its environment dynamically. The third project explores techniques such as query information and automatically adjusting features to enable the indexing to respond to change more appropriately. The last project tries to improve software quality and productivity through software reuse using latent semantic analysis.